Homological algebra and topology in three and four dimensions

The project aims to develop and understand homological invariants
of three- and four-dimensional topological objects. Such invariants
include Donaldson-Floer and Seiberg-Witten theories, and several
bigraded homology theories of links. These theories have the Alexander
and Jones polynomials as their Euler characteristics, as well as the
quantum sl(3) link invariant. We would like to construct a bigraded
homology theory of links for each complex simple Lie algebra g, with
components of links colored by irreducible representation of g. The
Euler characteristic of the theory should be the quantum invariant
of colored links associated with the quantum deformation of g, and
the theory should be functorial (extend to cobordisms of links).
Our other goals include better understanding of the relations between
existing theories, and an investigation of the categories that
appear when link homology theories are extended to tangles.

Topological objects in dimensions three and four have special properties
and a number of connections to algebra and analysis that do not generalize
to other dimensions. Three-dimensional objects, including knots, links,
and three-manifolds (the latter are global objects glued out of three-dimensional
spaces), admit combinatorial invariants, also known as quantum invariants,
that come from algebraic structures and can also be recovered from
two-dimensional conformal field theories. Quantum invariants of
four-dimensional objects, for the most part, are not known to have combinatorial
descriptions, and their definition and computation requires analytical
tools. We would like to bridge this gap by constructing new four-dimensional
invariants that are combinatorial, and, second, by finding combinatorial
description of known analytical invariants of four-manifolds, including
Donaldson-Floer and Seiberg-Witten invariants.